Covalent Phosphorus Residues in Xanthine Oxidizing Enzymes

Edmondson 9317614 This proposal is to investigate the possible catalytic role of a phosphoseryl residue in the catalytic mechanism of xanthine hydroxlation to uric acid by xanthine oxidase/dehydrogenase. Previous studies have shown the phosphoseryl oxygens to be labelled with H2180 in milk xanthine oxidase on substrate turnover. This line of investigation will be expanded to determine if the 190 labelled phosphoseryl residue is transferred to the substrate to form 190 labelled uric acid when the reaction is carried out in H2160. The phosphoseryl peptides will be isolated from chicken liver xanthine dehydrogenase and from milk xanthine oxidase and sequenced. The peptide sequence around these residues will then be located in the known sequence of the chicken enzyme and the known sequences of the rat or Drosophila enzymes to determine if they are located about the Molybdenum-cofactor binding domain. These experiments will critically test the feasibility of the hypothesis of a catalytic involvement of the phosphoseryl residues in this class of molybdoenzymes. %%% This project addresses a hypothesis of a potentially new function of phosphorylated amino acid residues in the detailed molecular mechanism of molybdoenzyme catalysis. Peptide sequence analysis of phosphopeptides will be isolated from proteolytic digests of chicken liver and bovine milk xanthine oxidizing enzymes, their amino acid sequences determined, and their respective locations in the respective amino acid sequences of known xanthine oxidizing enzymes determined. This information will determine if they are located near the domains of the enzyme thought to contain the active site molybdenum cofactor. The pathway for H2160 incorporation into the product (uric acid) of the enzyme catalyzed reaction will be followed by monitoring 180 labelling of the phosphoseryl phosphate residue and the uric acid product by mass spectrometry. These experiments should provide definitive evidence as to whether the phosphoseryl residue in xanthine oxidizing enzymes functions in a catalytic role. If this hypothesis proves correct, it would be the first demonstration of such a function for enzyme phosphorylation. ***